Revelance of Culture in Evaluation Workshop

This workshop is intended to provide a select group of teachers with an increased understanding of program evaluation in general as well as the emerging dicussion about the relevance of culture in program evaluation research and practices. Participants will be provided with an increased awareness of program evaluation, its importance for improving the educational success of minority students in urban school settings, and how program evaluation could be more culturally responsive. The workshop will involve minority and female teachers with 3-5 years experience in culturally diverse classrooms. In addition, teachers will receive 5-8 CE credits for their attendance at the workshop.